Invesitgations of periodic quantum wave guide structures

The objective of this research is to design, fabricate and characterize highly resonant electron wave guide structures. The semiconductor structures will be fabricated using high mobility GaAs/A1GaAs heterostructures. Device design will be similar to that of HEMT devices except a gate structure will confirm the two-dimensional electron gas between the source and the drain to one-dimension. The region of confinement will be shaped in a manner analogous to adding tuning stubs and cavities to a conventional wave guide system. We will examine the transmission coefficients and transconductance of the device as a function of gate bias, source-drain bias, temperature and applied magnetic field.